A Modern Undergraduate Engineering Technology Measurement Laboratory.

A novel undergraduate engineering technology measurements laboratory is planned. Recognizing that self-contained instruments such as oscilloscopes and signal generators are covered early in the curriculum, it will emphasize computer controlled test instrumentation, especially in-circuit testing using bed of nails instrumentation. Other areas that will be covered include the measurement of voltage, current and power with complex waveforms such as periodically switched voltages. This will be accomplished using digitized oscilloscopes and computer analysis. Another area which will be covered is device modeling through impedance analyzer measurements.